Acquisition of a Field-Emission Environmental Scanning Electron Microscope: A Critical Component of the University of Miami Center for Advanced Microscopy

9724212 Reid This award to University of Miami in Florida provides funds for acquisition of a new scanning electronic microscope and related instrumentation. This field-emission environmental scanning electron microscope allows both high magnification sample analysis in high vacuum mode and analysis of wet or uncoated samples in low vacuum mode, significantly enhancing researchers' ability to study environmental samples without preparation artifacts. This award from the Major Research Instrumentation Program is jointly supported by both Division of Ocean Sciences in the Geosciences Directorate and the Division of Biological Infrastructure in the Biological Sciences Directorate. It is expected to provide major improvements over existing analytical capabilities for researchers in both earth and biological sciences, as well as other fields, and it is anticipated that it will serve as an important catalyst for integration of research and education in environmental sciences at University of Miami and other South Florida colleges. Substantial cost-share is offered by the University of Miami towards this project. ***